Probability and Statistics in Ecology and Evolution

This proposal funds the PI to spend the 2000/2001 academic year in the Biology department at the University of Oregon with Professor Michael Lynch serving as host. The PI will collaborate with the
Ecology and Evolution group on projects including sampling strategies for phylogenetic comparative techniques and the understanding of duplicate gene preservation through subfunctionalization. The first of these is of very practical importance to Biologists as it will help in designing experiments. The second has theoretical importance in the understanding of genome evolution. The PI will also design and teach a course on
mathematical modeling for Biology. Expected outcomes of this grant include increasing the interaction between the Biology and Mathematics departments at UO, improving the mathematical training of Biology students, broadening the background of Mathematics students, and shaping the future direction of the PI's research. This IGMS project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).